Integrating Academic and Technical Education for Advanced Technological Careers

Two existing modules are being modified to integrate the national science education standards with the national industry-based bioscience skill standards. A module from a high school biology curriculum developed to address academic standards is being modified to include skill standards and vice-versa. A partnership of personnel from the Education Development Center (EDC), Baltimore City Schools, bioscience industry, and two year colleges is developing, testing, and evaluating the materials and appropriate assessments. The purpose of the materials is to enable high school and two-year college students to achieve both high level academic mastery and preparation for advanced technological careers in the bioscience industry. The development of the materials elucidates the issues of combining career and academic education.